Special Functions and Transcedence

The investigator proposes several problems in arithmetic
geometry and transcendental number theory that explore the arithmetic
nature of special values of analytic functions. In one project, the
investigator plans to study transcendence and algebraic independence of
numbers in positive characteristic arising from Anderson-Drinfeld motives.
These transcendence questions are closely connected to Galois groups
of Frobenius difference equations, and in particular the investigator
proposes to pursue the interaction between transcendence theory and Galois
theory to study function field multiple zeta values, periods and logarithms
of Drinfeld modules, and higher dimensional versions. The investigator
proposes to study Fourier coefficients of modular forms and their relationships
with finite field hypergeometric functions and Calabi-Yau manifolds. He
plans also to discover arithmetic properties of the extension groups of elliptic
curves and their connections with Galois representations.

One of the fundamental branches of modern mathematics, number theory
serves as the basis for many applications, including cryptography and
coding theory. The proposed research considers questions involving the
interplay between arithmetic and analytic aspects of number theory, which
have their beginnings in classical work of Euler and Gauss and which continue
to have important implications today to the essential understanding of problems
both in number theory and in many other branches of mathematics. Several parts
of the project lead naturally to problems for graduate and undergraduate research.